Periodic ARMA Modeling

Robert B. Lund
Periodic ARMA Modeling, DMS 0071383

Abstract

Periodicities naturally arise in data involving tides, climatology,
ecology, sociology, astronomy, economics, hydrology, etc.. This research
studies general periodic time series modeling methods along with some
applications to climatological problems. The specific questions examined
here include efficient computation of the autocovariance structure of
periodic time series models, parsimonious periodic time series model
development, changepoint and homogeneity methods, and trend properties in
monthly average and extreme temperatures. The mathematical and
statistical methods center on periodic autoregressive moving average
models (PARMA) time series models - the fundamental modeling vehicle for
periodic series. An efficient algorithm to compute the autocovariance
structure of a PARMA model will be explored. Changepoint and homogeneity
methods for periodic series, an issue that arises when weather recording
stations move, will also be investigated.

The developed mathematical and statistical results are used to settle
some climatological problems. A study of the trends in monthly
temperature means and extremes from United States stations will be
conducted. This detailed study will enhance our understanding of
climate change and global warming. The changepoint aspect is perhaps
the data's most important feature. Periodicities in the autocovariances
in the data need to be parsimoniously modeled to compute accurate
standard errors. Standard errors are needed to gauge the reliability of
the computed trends. The methods also yield improved forecasts of
periodic series as a byproduct.